Control of Heterochromatic Gene Silencing

9506103 Eissenberg Genes which are relocated to heterochromatin experience position dependent silencing, termed "position effect variegation" (PEV) in Drosophila. PEV will be used as a "tracer" for mitotically stable gene repression to test the working hypothesis that heterochromatin mediated gene silencing is initiated in early embryogenesis and actively regulated during development of the fly. A novel assay has been developed for PEV:transgenic flies that variegate for an inducible gene (lacZ under heat shock control). The assay will be used to test the stability of the heterochromatic silencing link to the mitotic cell cycle; it will be used to test the effects of genetic modifiers on developmental timing or tissue specificity of PEV; and, finally, the effects of ecdysone and activators/inhibitors of post-translational protein modification on gene silencing will also be tested. %%% The ability to study the linkage between the position of a gene on a chomosome and its ability to be expressed offers an opportunity to investigate the developmental regulation of heterochromatic gene silencing in a higher eukaryotic organism. Genes which are expressing are normally found in the chromosomal regions known as euchromatin. If they are moved to what is called the heterochomatic region of a chromosome, they are silenced. The proposed studies are aimed at determining the role of a number of developmental and genetic factors in the stable propagation of heterochromatic silencing in the fruit fly, Drosophila. ***